Computational Sampled-Data Nonlinear Control

While researchers have made major breakthroughs in controlling nonlinear continuous time systems over
the last two decades, more recently the research has started to focus on methods for controlling continuous
time systems based on discrete time models and over digital networks, because of the need to control increas-
ingly complex systems and because of the increasing computer power typically available. The proposed work
aims to use previously developed nonlinear continuous time control methods as a springboard to develop
new, high performance control algorithms for general nonlinear systems based on discrete-time models. The
focus will be on developing algorithms that are robust, adaptive, and don't require full measurement of
the system state. Applications of these results will include the development of optimal treatment schedules
for HIV patients, leading to a non-progressive state where treatment is no longer needed. Other applica-
tions will include control and calibration of automotive engines where state constraints, which are easy to
incorporate into certain optimization-based control strategies but which often lead to non-robust control
algorithms, play an important role. The proposed work also aims to give new, improved stability conditions
for networked nonlinear control systems, especially those using protocols that don't necessarily guarantee
transmission to every node of the communication network within a fixed amount of time. It is expected that
these new stability conditions for networked control systems will give insight into the development of novel
communication protocols which will, in turn, make networked control systems more successful and prevalent.
Broader impact:
The work in this proposal has the potential for broad impact via the role that control plays as an enabling
technology. As suggested above, the ideas that we will investigate may help lead the way to efficient drug
treatment schedules for HIV patients leading to a non-progressive state, thereby eliminating the need for
further drug therapy. In general, it should make it more feasible to rely on optimization-based automation
algorithms for a wide range of engineering tasks that impact all of society. The proposal will support
graduate students who will present their findings at national and regional conferences. The results will be
made available, promptly, on the web and will be immediately incorporated into graduate courses at the
proposing institution. The work will help to further shape UCSB's Center for Control Engineering and
Computation, which is one of the leading programs in control education in the nation. It will strengthen
interactions with international partners, e.g., in Australia, France and Italy, will foster novel collaborative
efforts with theoretical biologists at the Fred Hutchinson Cancer Research Center in Seattle, and will further
collaborative efforts with researchers at Ford Motor Company.